Pivots: Pivotal Pathways and On-Ramps to Careers in Biomanufacturing

This project's significance lies in its ability to provide hands-on, experiential education that leads to career on-ramps for Americans to enter and succeed in life sciences and biotechnology careers. The inability to meet the growing demand for biotechnicians weakens the nation's position as the global bioeconomy leader and poses national security risks. Through a certificate program and upskilling courses with robust services that enable success, the project will increase employability, wage potential, and career growth for up to 180 adults over three years. This serves the national interest by contributing to advancement in the biotechnology field and benefits society by producing professionals for the growing biomanufacturing industry. Additionally, the project provides an example of innovative, hands-on training for the adult vocational learner.

Gloucester Marine Genomics Institute (GMGI) operates Gloucester Biotechnology Academy, whose biotechnology certificate program combines classroom and laboratory training with paid internships. GMGI prepares adults with no prior mathematics or science experience and who are not connected with a college or career path to enter roles as laboratory technicians in the life science and biotechnology fields. Students learn on industry-recommended equipment; in addition to technical coursework, students complete a career skills curriculum preparing them for the job search and professional laboratory environment.

This project will make Gloucester Biotechnology Academy a more feasible option for a greater number of adults. It includes robust resources for adult vocational learners, including stipends, childcare and housing vouchers, technology and transportation, as well as resources for mental health services. The comprehensive curriculum taught by industry experts and experienced educators will be a model to enable expansion and scalability, thereby providing a much-needed talent pipeline in the advanced manufacturing fields. Outcomes will be thoughtfully captured, monitored, and shared broadly through conferences and publications across research, education, and industry. This project aligns with NSF priorities, as it addresses participation in STEM with the goal of creating broader career opportunities for adult learners in emerging technology fields.